Scheduling and Code Generation for Pipelined Architectures

The primary aim of the proposed research is the development of static scheduling techniques for multiple, multifunctional and reconfigurable pipelined operational units. Such units are the key elements of high performance computing engines. A voracious pipeline scheduling algorithm driven by the earliest completion time of tasks is proposed. The method provides good schedules at the basic block level. The intention is to extend it by researching and implementing the following concepts: static scheduling technique(s) for pipelined functional units with ability to handle branching, exceptions and global code motion, and a timing-resource model for the pipelined resources that will facilitate retargetable code generation for the pipelined resources. The plan is to test the concepts using the research version of the retargetable microcode compiler developed in the Firmware Engineering Laboratory. Since the control of most high performance computing engines is done at the firmware level, the scheduling techniques are geared towards microcode implementations. In order to accomplish the task of imbedding the pipeline schedules in the microcode one needs to develop a model for pipelined resources that facilitate the (retargetable) microcode generation for the pipelined resources. The significance of the proposed research lies in the pursuit of the quality (micro)coded control of the high performance, specialized computing engines. Major application areas are: realtime digital signal processing, computer vision and graphics, and related to these areas, specialized scientific computation.